II-NEW: Practical Pluggable Type Systems

This award is funded under the American Recovery and Reinvestment Act of
2009 (Public Law 111-5).

Buggy software costs the U.S. up to $60 billion annually, so preventing
bugs is important to society. It is possible to prevent certain bugs by
running a type-checker that analyzes a program to find all errors of a
given type. Current type-checkers for mainstream programming languages are
limited: there are too many bugs they cannot express and prevent.

This project enables a programmer to extend and customize a type-checker.
As a result, the type-checker can detect and prevent more errors, and in
particular the errors that the programmer considers most important. The
outcomes include design of new type systems for solving real-world
programming problems; a framework for building custom type-checkers, in the
context of an industrial language (Java); and significant experience with
real codebases to evaluate the ideas and to generate new research
questions. The framework will enable a community of researchers to more
quickly and realistically evaluate their theories. This may encourage more
relevant research and lead to more impact on practice.